iGrid 2005 Workshop: First Tests of the Global Lambda Integrated Facility

OISE-0527983
Brown

"iGrid 2005" is an international Grid workshop to provide real-time demonstrations and presentations. It provides a venue for the international research community to demonstrate application advances and middleware innovations developed for the LambdaGrid and enabled by the Global Lambda Integrated Facility (GILF). This year's iGRID event will showcase advances in scientific collaboration and discovery enabled by GLIF, by providing a forum for the world's premier discipline scientists, computer scientists and network engineers to work together in multidisciplinary teams tp understand, develop and demonstrate innovative solutions in a Lambda Grid world. Demonstrations will be given by representatives from more than 18 counties. This workshop is supported jointly by OISE's EAP, Americas, and CCE Programs and Shared Cyber-infrastructure Division, to be held at the Calit 2 building on the University of California, San Diego campus on September 26-30, 2005.